ROA: Mechanisms of Food Recognition and Selection in Herbivorous Calanoid Copepods

Copepod feeding on the suspended phytoplankton in marine systems are very important links in the food web. 'recent research on copepod feeding has shown that the process is a very active one, achieved via the production of feeding currents, the detection of particles of food in the water column and active capturing of particles. The actual mechanisms employed in these feeding processes are not understood. The focus of this research will be on the relative importance of chemoreception and mechanoreception in feeding and the role of learning. A unique micro-cinematography/3-D video system has been developed to allow fine-scale observation and experimentation with the behavior of these animals in near natural conditions. This system will be further developed during the award period. Dr. Strickler has been unique in his approach to the study of zooplankton behavior. He is widely regarded for the development of sophisticated observations systems that other researchers have easy access to. His fundamental research contributions are equally regarded. Support is strongly recommended.